Solid State Chemistry of Organic Reactive Intermediates

With funding from the Organic Dynamics program of the Chemistry Division of NSF, and within the Faculty Early Career Development Program, Professor Miguel A. Garcia-Garibay of the University of California, Los Angeles, will study photochemistry in crystals of organic compounds. The study will emphasize the selection of crystalline precursors which upon photolysis will produce biradicals within the crystals. Since the biradicals will consequently be in highly constrained environments, unusual structure-reactivity behavior is expected. The magnetic properties of the biradicals will also be determined. A new Physical Organic Chemistry course will be developed, as will a new approach to General Chemistry for Life Sciences majors. Dr. Garcia-Garibay will place a special emphasis on mentoring of students from underrepresented groups. Crystals of organic compounds involve close packing of the molecules, and the consequent constraints on the structures of products and intermediate species in solid state reactions are profound. This work will define some of the chemical and physical properties of an important class of reactive intermediates when placed under such constraints. Courses will be developed at both undergraduate and graduate levels.